Collaborative Research: Petrologic and Geochemical Evolution of the Mariana Trough

9303669 Bloomer The PIs have completed descriptions and interpretations of dredged samples, bathymetry and petrology of most of the Mariana Trough. In the present project they will carry out petrological/geochemical analysis of a selected group of samples. The data will be used to model evolution of incipient back arc basins. ***